US-Egypt Cooperative Research: Computer-Aided Design and Manufacture of Fiber Reinforced Composites

9713636 Gowayed Description: This award is for support of a cooperative project by Dr. Yasser A. Gowayed, Department of Textile Engineering at Auburn University in Alabama, and Dr. Faissal Abdel-Hady, Department of Mechanical Engineering, Ain Shams University, in Cairo, Egypt. The objective of this joint research is to study the feasibility of manufacturing fiber reinforced composites using computer-aided design and computer-aided manufacturing methods. Specifically the goal of the two sides is to design and manufacture a compressed natural gas pressure vessel from composite materials to be used in dual fuel passenger cars. The two sides plan to: connect novel compost design techniques, developed by Dr. Gowayed, based on Non-linear Programming (NLP), to machine control operators, developed by Dr. Abdel-Hady; construct a computer-aided Manufacturing system for filament winding at Ain Shams University; and manufacture a prototype for a compressed natural gas pressure vessel for dual fuel passenger cars. Scope: This research project will bring together the expertise of two scientists from two countries towards accomplishing an objective with potential benefits to the United States and to Egypt, as well as to the global environmental picture. The purpose is to develop a light weight vessel that can be used to store liquefied natural gas for use as a fuel in dual fuel passenger cars, thus reducing the adverse emissions that result from burning petroleum products, especially in congested cities around the world. The project can lead to establishing a new research capability in Egypt for the manufacture of fiber composites using advanced computer-aided techniques. An important feature of this project is the participation of two private-sector industrial concerns in Egypt in the research and testing. This proposal meets the INT objective of increasing US-foreign collaboration in areas that benefit both sides. This project is being supported under the U S- Egypt Joint Fund Program, which provides grants to scientists and engineers in both countries to carry out these cooperative activities. ***